Integration of Computer Integrated Manufacturing Cell Applications into Electronics Degree Program

9452329 Fleshman The Electronics program at Wytheville Community College is developing a computer integrated manufacturing (CIM) cell to increase the industrial electronics skills of its students. The CIM cell will enable second year electronics students to perform laboratory experiments and receive training in robotics, vision systems, local area networks, programmable controllers, programming of CNC machines, troubleshooting individual systems, and every aspect of computer integrated manufacturing. The student will see and work with real world applications, making them more attractive and valuable employees to industry. The center will also be a resource for the Drafting and Design and the Machine Technology programs.